A DNA Laboratory Workshop for Undergraduate Science Faculty

Many exciting possibilities are now becoming realities in biology and medicine due to the use of recombinant DNA. Human insulin, growth hormone and several other hormones are now becoming available for the first time in quantity. Undergraduate students need to understand the fundamentals of these methods in order to participate in the future advances in biology and medicine. A DNA Laboratory Workshop for Undergraduate Science Faculty is an intensive week-long program for small college teachers. The workshop, consisting of lecture, laboratory and discussion periods, will enable 25 science faculty who have never had "hands-on" experience with recombinant DNA laboratory techniques to gain familiarity with several of these techniques. These new techniques will then be taught in the undergraduate college setting. The DNA workshop will be hosted by a consortium of eight Liberal Arts colleges in Ohio, Pennsylvania, and West Virginia (the East Central Colleges, or ECC), but will include science faculty members from about twelve to fourteen colleges. The instructional staff will consist of staff scientists from Cold Spring Harbor Laboratory, a leading laboratory in DNA research and education. The workshop will be held at Bethany College in Bethany, WV. In addition to NSF funds, the participants' institutions will provide about 20% in travel funds.